Lanthanide Ion Luminescence, Chelate and Supramolecular Chemistry Relevant to Clinical Agent, Optical Device, and Chemosensor Applications

This grant in the Inorganic, Bioinorganic and Organometallic Chemistry program supports work by Professor William DeW. Horrocks of the Pennsylvania State University. The research is aimed toward: 1) answering fundamental question regarding the formation of lanthanide chelate complexes, which are important in imaging internal biological structures by magnetic resonance techniques, 2) developing a new supramolecular chemistry of lanthanide ions in aqueous solution, and 3) exploiting a recently discovered photosensitized emission phenomenon in the near infrared to develop chemosensors. The chemistry and luminescence of lanthanide complexes will be investigated in order to better understand present agents used to affect proton relaxation times for imaging purposes and to develop new chemistry aimed toward improving these agents. A new type of complex exhibiting a stable low energy (near infrared) emission will be explored for chemosensor and other applications. New large molecular structures composed of lanthanide subunits will be prepared in water.